PostDoctoral Research Fellowship

This award is made as part of the FY 2016 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Aukosh S. Jagannath is "Variational and Structural Problems in Spin Glasses." The host institution for the fellowship is the University of Toronto, and the sponsoring scientist is Dmitry Panchenko.

This award was supported with funding from the Office of International Science & Engineering.